Conference: Seventh International Conference on Juvenile Hormone, August 29-September 3, 1999, in Jerusalem, Israel

This application by Dr. Granger is for the Seventh International Conference on the Juvenile Hormones and will be held from August 29 - September 3, 1999, on the campus of Hebrew University in Jerusalem, Israel. The requested funds will be directed toward the attendance of graduate students and postdoctoral fellows from the United States.